North Carolina Louis Stokes Alliance for Minority Participation - Phase III

North Carolina Louis Stokes Alliance for Minority Participation - Phase III

The North Carolina Louis Stokes Alliance for Minority Participation (NC-LSAMP) requests
support for continuingits efforts during Phase III. The LS-NCAMP Alliance includes eight
partner institutions - North Carolina A&T State University (lead institution), Fayetteville
State University, North Carolina Central University, North Carolina State University,
University of North Carolina - Chapel Hill, University of North Carolina Charlotte,
University of North Carolina - Pembroke, and Winston Salem State University. The
Provost and Vice Chancellor for Academic Affairs at North Carolina A&T State University
will lead the project with assistance from key administrators at all Alliance institutions.
This will ensure the effective institutionalization of the strategies proposed here. The
work proposed caps a decade long series of activities aimed primarily at increasing
undergraduate degree production in Science, Mathematics, Engineering and Technology
(SMET).

Underrepresented minorities comprise 30 percent of the college-age population
but they represent only 11 percent of the baccalaureate engineering graduates resulting
in a "parity gap" of 19 percent. The parity gap is even more pronounced at the master's
and doctoral level. Clearly, more needs to be done to reduce this parity gap, more out of
economic necessity and to meet global competitive pressures than any other reason.
The efforts outlined in this proposal are aimed at meeting this challenge.

The activities proposed in this proposal are driven by the need to increase substantially
the number of underrepresented minorities who will contribute significantly in science,
mathematics, engineering and technology areas. While the baccalaureate degree programs
will receive continued attention, special emphasis will be placed on amplifying the flow
of minority students in the graduate and research pipeline. The primary goals of the
proposal are (i) to increase the pool of competent underrepresented SMET graduates
with bachelor's degrees (specific objectives include increasing the number of SMET
graduates from bachelor's degree programs by 10% from allAlliance partner schools by
2007 and increasing the quality of SMET bachelors degree graduates from all alliance
partner schools based on their performance in college courses and national examinations
by 50% by 2007) and (ii) to increase the number of students who matriculate into SMET
graduate schools (specific objectives include increasing the number of SMET students
who express an interest in graduate studies by 100% by 2007, increasing by 100%, the
number of SMET graduates who are academically qualified for admission to graduate
programs by 2007, increasing the number of SMET graduates from alliance partner
institutions who are enrolled in graduate SMET programs by 100% by 2007, and increasing
the retention rate by 10% of underrepresented students in graduate SMET programs).
An additional goal of the project is to identify significant factors that promote
baccalaureatedegree attainment, retention in academic programs and entry into graduate
school in SMET areas (specific objectives are to identify significant factors that promote
and hinder retention of minority students enrolled in SMETbaccalaureate degree programs,
and to identify significant factors that promote and hinder entry of minority
undergraduate students into graduate SMET degree programs).

Strategies for accomplishing project goals are based on published techniques that have
proven successful in smaller samples. Specifically, the approaches to be employed include
focused recruitment from school; bridge programs to manage the school-college transition;
supplemental instruction, cohort scheduling and workshops for undergraduate students
during the first year to enhance retention and preparation for upper-class coursework;
undergraduate research and professional development workshops aimed at motivating and
preparing students for graduate study; and the development of networking and mentoring
systems to improve retention in the first year in graduate school. A key emphasis during
Phase III will be Alliance-wide institutionalization of proven strategies that have been
known to improve the success rates of students in SMET.

The Alliance partners together awarded over a thousand degrees and currently enroll over
six thousand undergraduate minority students in SMET programs. In addition to students
in the Alliance, dissemination activities under this proposal have the potential to impact
several thousand students each year.